Sparse Direct Solvers for Unassembled Hyper-Matrices

The underlying assumption behind currently available sparse direct
solvers, namely that an individual solve in isolation should take
minimal time, does not represent an optimal solution in the setting of
an adaptive finite element method. There, intermediate results, in
the form of a factorization, from the solution of a current refinement
can be updated when a local refinement occurs. Two innovations
underlie the project: an interface that allows applications to pass
information about refinement to the direct solver library and a data
structure, the Unassembled HyperMatrix, that allows sparse matrices
and their factorization to be stored in an unassembled format that
facilitates the updating of the matrix and its factorization. In
other words, this research is based on the ideas of inheriting the
elimination tree from the refinement history of the domain and storing
element matrices unassembled on all levels, assembling them only when
necessary for the factorization. Since the resulting solver functions
fully in terms of element matrices, dense submatrices are naturally
exposed as part of the factorization which will allow high-performance
kernels like the level-3 BLAS to be fully exploited.
The focus of the research includes the design of an API that optimally integrates the
solver into applications, the development of the Unassembled
HyperMatrix infrastructure, and an investigation of stability and
complexity, in particular the design of pivoting strategies for the
indefinite case.

Computational simulation has joined the two traditional methods in
science, theory and experiment, as an equal partner. For many
applications, ranging from the similation of vibration in an
automobile to the computation of the radar signature an airplane on
radar, finite element methods are the computational method of choice.
The best of these methods use adaptive approximations to balance
accuracy against the time required for the solution. Invariably, most
time is spent in the solution of a system of linear equations. It is
the reduction of this solution time, in the specific setting of an
adaptive application, that is the focus of this
research. The innovation that is the basis of this project consists
in storing the linear system in a new format, the Unassembled
HyperMatrix, that allows much of a past computation to be reused when
an adaptation occurs. Hand in hand with this theoretical innovation
goes the development of an interface that allows an application to
express adaptation to the solver library. The new approach has the
potential for reducing the cost of a solution related to an adaptation
substantially.